Red Blood Cell Lysis by Schistosoma Mansoni

The overall objective of this project is to complete characterization of the hemolytic agent(s) from the human blood parasite Schistosoma mansoni. First it is planned to determine the chemical identity of the lytic agent(s) as well as its metabolic precursors using HPLC techniques and radioactive precursors. Previous studies suggest that the lytic agent can influence the organization and dynamics of the red blood cell (RBC) membrane, therefore, it is proposed to use fluorescence photobleaching recovery techniques to determine changes which occur in the RBC membrane during the lytic process. Finally, the localization of the lytic activity within live schistosomes will be determined. Through this study it is hoped to increase our knowledge on factors influencing red cell membrane dynamics as well our knowledge on direct interactions between a human parasite and the cells of its host. The interactive component will involve lecturing in the regular parasitology course offered to Harvard graduate students, presenting a seminar series for graduate and undergraduate students on "Careers for Women in Science," and participating in the Women in Academic Medicine Network." In addition, Dr. Kasschau will discuss careers in Biology and medicine with interested high school students. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.